Research Initiation Awards: Experimental Investigation of Transient Convective Freezing and Melting of Ice on a Cold Tube Bank in a Crossflow of Water

This research is an investigation of the phenomena of freezing and melting of ice on a cold tube bundle. The tube bank is immersed in a flowing stream of water (T OoC) and the ice layer is studied that grows on the outside surface of the tubes, when the tubes are internally cooled below the freezing temperature (Tw OoC). The subsequent melting process of the ice formations when the coolant is removed will also be studied. The main focus of this research is to document in terms of new correlations, the time-dependent heat transfer (Nusselt number) and fluid flow (pressure drop) characteristics (per row) of the systems as the freezing and melting process proceeds. We will photographically record, at various times, the exact ice shape profiles and will visualize the resulting flow field through the tube bank. Under the steady state condition, the local Nusselt number distribution will be obtained. Experiments will be conducted in the low to moderate Reynolds number range and for a number of different cooling temperature ratios. Both in-line and staggered tube geometries will be considered. The effect of the tube's pitch and the upstream turbulence level will be documented. The interest in this research is justified from both a practical and from a fundamental view-point. The results of the proposed study is important to the field of thermal energy storage involving phase change materials. To be more specific, the findings obtained in this study would have direct engineering consequence in the design of ice storage systems and in phase change storage heat exchangers. From the broader perspective, the problem under investigation is a highly complex coupled phase change heat transfer and fluid dynamic problem that addresses new areas in which our current understanding is lacking and needs improvement.